Manipulation of Fe Segregation at SrTiO3 bicrystals with Electric Fields

NON-TECHNICAL SUMMARY:

The application of an electrical field during the making of ceramics can dramatically accelerate processing times and lower required temperatures. Dopant atoms are commonly added during ceramic processing to also lower processing temperatures and enhance favorable configurations of the ceramic at a very fine scale. While the adding of dopants to internal interfaces inside a ceramic (where such interfaces are commonly called “grain boundaries”) can have dramatic effects on large scale physical properties, the movement of dopant atoms (a process called “segregation”) in insulating ceramics can create local charge variations at grain boundaries that must be compensated for by oppositely charged defects to maintain overall charge neutrality. In this project, non-contacting electric fields are being applied to dense ceramic microstructures to directly interact with local charge variations and modify the adsorption of dopant elements at grain boundaries. Diffusion bonding of bicrystals and subsequent atomic resolution electron microscopy characterization are being employed to fundamentally understand how electric fields interact with internal interfaces and affect equilibrium dopant segregation. Novel in situ experiments are also investigating whether dopant movements can be reversibly changed to temporarily modify properties at a larger scale.

Outreach and workforce development activities include partnerships with a local school for classroom demonstrations and educational activities focused on materials science at the Saban Center, a first-of-its-kind STEM and the Arts campus in downtown Tuscaloosa.

TECHNICAL SUMMARY:

The application of electric fields during ceramic processing and the addition of dopants can lower sintering temperatures, enhance densification, and, hence, modify microstructure formation. Grain boundaries represent not only structural defects but also charge inhomogeneities, especially when combined with the segregation of dopant atoms. As a result, the formation of diffuse space charges adjacent to the grain boundary are formed that account for overall charge neutrality. This space charge layer model has previously been used to rationalize a variety of macroscopic physical properties, including mechanical strength, toughness, as well as electrical or ionic conductivity. This project is pursuing the application of external, non-contacting, electric fields during ceramic processing that are interacting with space charge configurations of grain boundaries and, as a result, modifying equilibrium dopant adsorption. In this project a variety of doped bicrystals of SrTiO3 with different misorientations are being annealed in the presence of externally applied electric fields. Aberration-corrected scanning transmission electron microscopy is being used to characterize grain boundary core structures, their quantitative chemical compositions, and their local charge density distributions as a function of applied electric field and direction. In-situ STEM experiments are also clarifying whether field-induced modifications of interface configurations are reversible, and whether grain boundary transformations are continuous or discontinuous. Ultimately, this project is paving the way to alter dopant segregation behavior during ceramic processing to tune macroscopic physical properties.

Outreach and workforce development activities include partnerships with a local school for classroom demonstrations and educational activities focused on materials science at the Saban Center, a first-of-its-kind STEM and the Arts campus in downtown Tuscaloosa.